Complex Analysis and Potential Theory

ABSTRACT Khavinson Using techniques of partial differential equations and complex analysis, Khavinson plans to study several problems in nonlinear pde's, approximation theory and potential theory. He will study the argument principle for solutions of the complex p-Laplace equation and its relation to extremal problems for analytic functions, qualitative properties of the best approximations in the mean by analytic functions, the reflection principle and the "antenna problem", and an inverse problem for double layer potentials. Most of these problems although stemming from rather classical mathematics will require the arsenal of the modern tools for their solution and, though quite basic in their formulation, have been resilient to all attempts to solve them. All of them have important ramifications in other branches of mathematics and applications, e.g. the "antenna problem" deals with the search for a best possible "receiving" antenna for cylindrical waves beyond an obstacle, research on double layer potentials would allow one to characterize the class of plane curves and data for which one can solve the most important boundary value problem - the Dirichlet problem - by direct formulae involving the integrals of the double layer vs. standard procedures. Khavinson will work in these projects in collaboration with three graduate students which should have a strong positive impact on the graduate program and human-resource development in Arkansas.